U.S.-China Workshop on Bilingual Botanical Information Management, December 1995, Tuscaloosa, Alabama

9512780 Xu Modern information technology has reduced the distance between American and Chinese colleagues in terms of scholarly exchanges,and it is predictable that a lot more future scholarly communication between the two parties will occur through the international computer network or information highway. Language barriers present severe problems in communication because the Chinese language is incomprehensible to the majority of American colleagues and most Chinese people do not speak English. Bilingual (English-Chinese) database management systems provide a solution to overcome the language barrier because such systems can simultaneously present the same piece of information in two language formats, while archiving the original data without distortion. Co-funded by the U.S. National Science Foundation (#INT9312146) and the Chinese National Natural Science Foundation (#39410121144), a prototype of English-Chinese botanical database system has been developed by the investigators of this proposal, and a sample of bilingual collection data from Sun Yatsen University herbarium (SYS) has been made on line through the Southeast Regional Floristic Information System (SERFIS) at the University of Alabama since March 1995. Users can query this bilingual data set through the Internet computer network. Most American botanists are not aware of bilingual database management systems, and the majority of Chinese colleagues are still isolated from the modern information world. Therefore, a joint workshop for bilingual botanical information management between American and Chinese colleagues is proposed at the University of Alabama by the end of 1995. The workshop will present to participants the concepts and proven practices in bilingual botanical information management, in addition to several existing botanical information systems in the U.S., including Specimen MAnagement System for California Herbaria (SMASCH), SERFIS, and Biodiversity Information Management Sy stem (BIMS/INBio). It is expected that this workshop will promote the development of botanical information systems in both U.S. and China, and it will facilitate the scholarly exchanges between American and Chinese botanists.